Design Methodologies for Developing Multiprocessor Super- computers

This project investigates two design methodologies, dynamic systolization and macro-dataflowing, useful in developing multiprocessor supercomputers. The concept of multiprocessor element systolization is generalized from pipeline chaining implemented in Cray X-MP. This technique offers a new network approach to designing reconfigurable systolic arrays for fast evaluation of compound functions and special algorithms. Macro-dataflowing refers to an event-driven approach to developing dataflow supercomputers. Macro-dataflow is effective to support multitasking with variable granularity. The studies include principles of dynamic systolization and macro-dataflowing, development of functional mechanisms, multiprocessing software supports, system reconfiguration techniques, multitasking benchmark studies through simulation experiments, and supercomputer performance evaluations. The major application area emphasizes the solution of Partial Differential Equation (PDE) problems.